A Biorobotic Functional Genomics Screening Facility

9970233

Abstract

This projects involves the establishment of a biorobotic functional genomics screening facility at University of California, Irvine (UCI). The primary objectives of this proposal are (i) identification of interacting molecules; and (ii) automation of cell transfections and cell culture based arrays. A cDNA array will be automatically replicated and DNA extracted and protein produced by a coupled transcription/translation reaction (TNT). Pools of proteins produced by TNT will be tested for interaction with target molecules (other proteins, DNA or small molecules) using a scintillation proximity assay (SPA) in 394 well microtitre plates. For cell based assays, pools of cDNA clones will be transfected into cells engineered with reporter constructs (pooling, cell culture and transfection will all be done robotically). The equipment requested includes a robotic workstation, high density microtitre plate scintillation counter, a microtitre plate reader and associated robot friendly items. The advantages of automation include (i) increased sensitivity, i.e. a higher degree of quantitation and reproducibility not attainable manually; (ii) higher capacity i.e. high throughput (100-250,000 cDNA clones) also not attainable manually; (iii) new capabilities, i.e. the ability to detect interactions impossible or impractical with other methodologies; and (iv) once set up, the system will be low cost and rapid compared to other methods.

When in place, this facility will represent cutting edge technology to perform tasks that will advance many projects at UCI and elsewhere. It will also provide a base system from which to explore development of new technologies in conjunction with other groups such as the biomedical engineering group at UCI.